Planning Grant for the Establishment of a Multi-University Center for Membrane Applied Science and Technology (University of Arkansas/University of Colorado)

ABSTRACT
EEC-9905236
CROSS

This planning grant funds the University of Arkansas for industry/university interactions to determine the feasibility and viability of becoming a research site of the Industry/University Cooperative Research Center (I/UCRC) for Separations Using Thin Films. The Co-Directors of the site would be Dr. Robert Cross and Dr. Robert Beitle.

The University of Arkansas expertise will broaden the Center's research base by addressing research in bioprocessing; chemical, biochemical and microbiological analysis; food and beverage processing; UF and MF process design modeling and optimization; water purification and environmental applications; and catalytic membrane reactors.